Equipment for High Performance Integrated Circuit Packaging Research

New designs of high performance integrated circuit chips require innovative packaging methods to accommodate their increased size, complexity, speed and heat flux. Severe limitations in the performance of future VLSI-based systems are predicted unless substantial progress is made in the electrical, thermal and thermo-chemical capabilities of chip- and board-level packaging.